Transferring New Assessment Technologies

The goal of this project is to transfer new assessment technologies from researchers to education practitioners. This would enable curriculum development teams to align curriculum and assessment within the classroom, and provide teachers the knowledge and skills needed to effectively use new assessments embedded within the curriculum. To accomplish this, the project will produce hands-on training materials for enhancing teachers' and other educators' capabilities to use, and for some to construct, new forms of student assessments--such as portfolios and hands-on investigations--that are aligned with curricular reform in science and mathematics education. To this end, prototype hands-on training materials will be developed and field tested. Prior to developing the prototype materials, the project will create new assessments, in order to study the steps involved in producing the assessments, and then work with teachers and other educators to find out how best to transfer new test-development technologies from research staff to those involved in classroom and school test development. The final product will be two hands-on training packages, one for providing preservice and inservice teachers with the knowledge and skills to use new assessments and another, building on the first, to provide teachers, graduate students in science education, supervisors, and other educators the knowledge and skills to create and evaluate new assessments. The cost sharing will be a minimum of 13% of the NSF portion.